Mathematical Sciences: Lie Groups

Professor Wolf will continue his research on Lie groups, harmonic analysis, and representation theory, with some applications to complex analysis, Riemannian geometry, and control theory. He will develop applications of his recent results on the equivalence of various methods of construction of representations. He will study the possibility of determining the character of a representation from a formula he has derived with R. Herb. He will complete his work on the Schwartz space of a general semisimple Lie group and study discrete series representations of groups of hermitian type. Finally, Professor Wolf will study the observability and controllability problems for evolution equations associated to invariant differential operators on Riemannian homogeneous spaces. Group theory is basically the theory of symmetry. To take a simple example, when the system in question is invariant under a change in the position of the origin of space, the group of translations naturally arises. While groups are abstract objects, particular situations demand concrete realizations or "representations" of the symmetry group.